TOGA COARE Enhanced Monitoring Array Analyses

OCE-9525912 Weisberg Analyses focusing on the observation within the TOGA COARE (Coupled Ocean Atmosphere Response Experiment) Enhanced Monitoring Array will be conducted in collabration with scientists from NOAA/PMEL who deploy the TAO array. The analyses will examine the oceanic variability observed over the COARE region, conduct heat, mass and momentum studies and examine the realtionship between the COARE domain and the far field in the context of understanding the influence of the western Pacific warm pool on seasonal to interannual climate variability.